Scholarships for Underrepresented Minority Engineering, Technology and Computer Science Students

The S-STEM scholarship program in the School of Engineering and Technology at Alabama A&M University (AAMU) supports 25 low-income and talented scholars per year up to graduation in the civil engineering, electrical engineering, mechanical engineering, technology and computer science programs. The amount of each scholarship is up to $6000 per year for a 4-year period. The primary objectives of this project are: 1) provide financial support for talented and low-income African-American students in engineering, technology and computer science; 2) identify the special needs of low-income students and provide academic support to these students in the form of supplemental math and science courses, faculty and peer monitoring, student/faculty research opportunities, attending technical and scientific workshops and independent study opportunities; 3) provide the S-STEM scholars with solid career counseling that includes preparation for graduate schools, service learning opportunities, research and internship employment opportunities in national need areas and effective employment strategies such as resume writing, and interviewing skills; and 4) address the local educational and industrial needs.